Analyzing the Tropical Impact of a Subpolar Thermohaline Anomaly

0095057/Curry

In the late 1980s and early 1990s the source of Labrador Sea Water (LSW)
became colder, fresher and denser during a persistent high phase of the
North Atlantic Oscillation. This provided an anomalous signature which
could be used to track deep water as it flows south in the Deep Western
Boundary Current (DWBC) of the North Atlantic. This project will
analyze data collected from a series of sections across the deep western
boundary current in and near the tropical Atlantic, including some that
were recently made under a Small Grant for Exploratory Research. One
aim is to determine the speed with which the anomalous LSW signal is
traveling along the western boundary of the North Atlantic. This will
provide an estimate of how rapidly climate signals associated with
adjustments in the ocean's meridional overturning circulation can
propagate from high to low latitudes. This is an important parameter
in many scenarios of climate change and one that can be used to test
the fidelity of climate models. A second aim is to determine the
dynamical effects on the DWBC of the passage of this anomalously low
potential vorticity.